Collaborative Research: Analysis of Functional and High-Dimensional Data with Applications

This project deals with statistical inference in
phenomena that result in massive, multidimensional and/or
functional data sets. Prime examples are geophysical, biomedical,
and internet related data. In addition to high dimensionality, such
data are often characterized by self-affinity and require
non-standard (functional) models for their modeling and subsequent
statistical analysis. The methodology to be developed will advance
both the theory and practice of functional data analysis, a very
fast-developing and modern area of statistics. The common and novel
features of the statistical methods proposed here lie in the nature
of analyzed data. The data sets are massive, multidimensional,
functional, and possibly self-affine (fractal or multifractal).
Recent progress in multiscale data representations provide natural
and efficient environments for (i) developing scale-sensitive
analyzing tools for estimation, testing, classification, and
deconvolution, and (ii) describing, summarizing, and modeling
self-similar data. Bayesian methodology will be used whenever
available prior information can be incorporated or whenever sensible
automatic priors are possible.

Development of new inferential methodologies is critical for the
statistical support of recent scientific initiatives and newly
emerging technologies. The proposed research is application driven,
so the specificities of the application fields influence the design
and focus of the methodology. Techniques suggested in the proposal
deal with problems of testing of efficiency of new medical
treatments, target detection and classification as well as
classification of medical images, or more accurate recovery of radar
or satellite data. Hence, the methodologies which result from the
proposal are applicable in such areas of strategic interest as
health and medicine and homeland security. In addition to
methodological impact, the proposed research has a strong
educational component consisting of training graduate students,
involving undergraduate students in research projects, conducting
inter-departmental seminars, increasing awareness of mathematics
education among the work force, and attracting minority and female
students.